Mathematical Sciences: Topology of 4-Dimensional Manifolds

The research consists of three projects in the topology of 4-dimensional manifolds. The first project is a continuation of joint work with R. Lee (Yale University) in which the investigations are focused on: (a) the least genus problem for embedded surfaces, (b) obstruction theory for embeddings, and (c) topological rigidity of simple embeddings. The second project concerns finite group actions on 4-manifolds, with emphasis on the question of smoothability and methods of classification. The third project concerns nonorientable 4-manifolds and their exotic smooth structures. Manifolds are very natural geometric objects, being the locally Euclidean ones. Answering questions about four- dimensional manifolds, in particular, may have cosmological significance, for we live in a manifold of three space dimensions and one time-dimension.